CAREER: The Origins of Discourse: How Children Develop Communicative Rationality

To become reasonable and responsible members of society, children have to learn to be proficient in rational discourse. Rational discourse consists of two main skills: Reason-Responsiveness, the ability to form, maintain, or revise one’s beliefs appropriately in response to reasons provided by others; and Reason-Giving, the ability to provide adequate reasons supporting one’s own claims. The proposed project advances basic knowledge of the development of these two critical thinking skills.

This project addresses the development of communicative rationality: how children between the ages of 4 and 9 develop fundamental skills to become proficient and critical contributors to public discourse. Using a mix of experimental and observational methods, the proposed research objectives focus on two key sets of psychological capacities: the development of reason-responsiveness and reason-giving. Additionally, the hypothesis that the development of communicative rationality can be fostered through a specific form of socio-linguistic interaction – parent-child metatalk – is tested. This research advances knowledge by i) developing a new perspective on rationality as a social phenomenon (communicative rationality) and further understanding of its development and ii) providing the first systematic test of how communicative rationality can be fostered in children.